Topological Quantum Field Theories

Abstract

Award: DMS-0505735
Principal Investigator: Albert Schwarz

The first examples of topological quantum field theories were
constructed by PI in the late seventies. The importance of such
theories became clear in late eighties after Witten's
papers. Witten suggested a more general way of construction of
topological quantum field theories and used it to find new
interesting models. Among the most important topological theories
are Chern-Simons theory, suggested by PI and Witten and solved by
Witten, and Witten's topological sigma-models (A-model and
B-model). Chern-Simons theory was very useful in knot theory.
Topological sigma-models, especially mirror symmetry between
A-and B-models, were used to obtain striking results in
enumerative algebraic geometry. Topological version of gauge
theories led to remarkable developments in the theory of
four-dimensional and three-dimensional manifolds. One can say
that topological quantum field theories opened the way for
applications of ideas borrowed from physics to pure
mathematics. However, these theories were used also as a powerful
instrument in string/M-theory. It was shown by Witten that
starting with any N=2 superconformal theory one can construct
topological quantum field theories by means of so called
twisting. This means, in particular,that string theory with N=2
superconformal target has topological sectors, that can be
analyzed more easily than complete theory. Topological sectors
served as a testing ground for many important conjectures. From
the other side, for any critical string we can obtain
two-dimensional topological theory considering matter fields
together with ghosts. More generally, two-dimensional topological
quantum field theory obeying certain conditions can be "coupled
to gravity"; the resulting theory can be considered as string
theory.

The present proposal is devoted to some problems related to
topological quantum field theories. In particular, we would like
to relate recent developments in knot theory to the theory of
topological strings; it seems that this relation should lead to
essential progress both in knot theory and in string theory. We
are planning to apply methods of number theory to topological
string theory. Our projects are interdisciplinary; their
realization will be important both for mathematics and
theoretical physics.